The Physics of Plasma-Induced Charging Damage

ECS-9729968
Giapis
Patterned surfaces are frequently exposed to plasmas as in plasma characterization through minuscule sampling orifices or in applications ranging from etching, deposition, and ashing in microelectronics, to selective surface functionalization. Frequently, the patterns consist of dissimilar materials (insulating masks, conductive metal or polysilicon, gate and field oxide), which charge up as a result of the directionality difference between ions and electrons at the plasma-sheath exit. Plasma-induced charging may cause ion deflection with undesirable consequences; for example, mask charging leads to sidewall profile irregularities when etching high aspect ratio features.

In this proposal, we seek to reveal the fundamental physics of plasma-induced charging
through a combined experimental and theoretical approach focused on dense sub-micron
patterns of insulators and conductors similar to those encountered during plasma etching.
Large-scale Monte Carlo simulation will combine sheath dynamics, microstructure
charging, electrostatics, reactions, scattering, electron tunneling through t n insulators, and
surface currents to shed light into a variety of conflicting reports on the influence of
plasma parameters on charging damage. In particular, we seek to understand the nature of
the so called "electron shading" damage, which causes catastrophic electron tunneling
currents through the gate oxide in polysilicon-on-insulator structures. Significant modeling
effort on pattern-dependent charging effects will be expanded to include tunneling effects
and surface currents and will be used to predict:

a) The influence of electron temperature, rf bias, and rf frequency on charging damage.
b) Aspect-ratio-dependent charging effects. Is there a correlation between microloading and electron shadowing?
c) Mask thickness effects. How will the use of thinner hard (oxide) masks impact charging damage?
d) Feature- and wafer-scale effects. Does charging of a particular feature affect damage in neighboring trenches?
e) Pulsed-plasma effects. Why do pulsed plasmas reduce both forms of charging damage?
f) New device-layout rules for eliminating charging damage.

The simulation results will be validated by extensive etching experiments in a high density plasma produced in a helical resonator